Mathematical Sciences: A Program Group in Harmonic Analysis

This award will fund a Mathematical Sciences Research Group in harmonic analysis. The goal is to sustain a highly interactive community of mathematicians (including students and young investigators) whose work is related to the shared interests of the principal investigators. Those interests are in the general area of function theory, operator theory, and harmonic analysis.